SBIR Phase I: Type-II Mid-Infrared Lasers Grown on Compliant Universal Substrates

9760193 Lin Applied Optoelectronics will develop mid infra-red (3-5 microns) semiconductor lasers, capable of operating at temperatures greater than 220K, with pulse lengths greater than 10 microseconds, and at average output powers exceeding 10 mW. Type II quantum well lasers will be grown on GaAs universal substrates, allowing epitaxial side-down mounting, and using 980 nm InGaAs diode laser arrays as a pump source. Commercial applications for this technology include in-situ process control, remote chemical sensing, IR spectroscopy and glucose analysis.